Catalytic Supercritical Water Oxidation

9317618 Abraham This project considers the effects of a heterogeneous catalyst on the oxidation of organic species containing nitrogen in an aqueous medium at temperatures near the critical point of water. Candidate catalysts include vanadia, cupric oxide, ceria/magnesia, palladium, and platinum. The stability of the catalyst in supercritical water and its effects on the oxidation of nitrogen-containing species, such as ammonia, pyridine, pyrrole, methylpyrrole, aniline, or benzonitrile, are observed. The heterogeneous and homogeneous reaction rates for the chosen system are modelled and any partial oxidation products are identified. The results are described in terms of a consistent set of reaction pathways. Supercritical water oxidation has been shown to be an effective method to destroy many hazardous chemicals, but issues remain, particularly in the possible production of partial oxidation products. This work explores the use of a catalyst to issue complete destruction for wastes of the type produced by the fiber, insulation, pesticide, pharmaceutical, and explosives industries. ***